Molecular Science

9450676 Chapman Economic change and new technology are driving educational reform. The transition from the Industrial Age to the Information Age is causing great change in the institutions of our society, and the universities and colleges are not exempt. New technology--powerful computers, sophisticated client-server systems, high-resolution graphics for visualization, multi-media, virtual reality, and broad-band fiber-optic cable are transforming our economy and our society; they will alter forever what we mean by "education." An Alliance of the University of California, Los Angeles (UCLA), California State University, Fullerton (CSUF), and twenty-four community colleges in the greater Los Angeles area has worked together for many years in improving chemistry instruction. The Alliance now requests funds to plan a proposal that will reorganize content into a new molecular science curriculum and make maximum use of new educational technology. In preparing this proposal our attention is focused on informing our faculties, gaining broad faculty support, and achieving consensus for action. To achieve these goals, we propose four planning grant activities. First, we will host a seminar that features distinguished speakers in economics, technology, curriculum reform, science philosophy, science education, cognitive science, and educational innovation. Second, Professor Orville Chapman of UCLA will present a one-quarter seminar course that defines the issues, presents the proposal, and facilitates debate and discussion. Third, members of the planning group will travel to sites of technological innovation. Finally, we will have a two-day faculty retreat at Lake Arrowhead to fine tune the new curriculum and plan for action. ***y